Electronic Processes and Interactions in Amorphous Semiconductors

This project has the objective of understanding the transport of electrons and holes in amorphous semiconductors, their recombination and conduction during light excitation and their local interaction with the amorphous materials. Use will be made of confining the charge carriers spatially in ultrathin layers of amorphous semiconductors to explore the effects of reduced dimensionality. The universal character of different modes of electronic conduction will be explored in various materials including those that interact strongly with electrons and are suspected of forming polarons.